Connection of Schools to OARnet and NSFNET - Pontifical College Josephinum

Pontifical College Josephinum will use this grant to connect its Columbus, OH campus to the Internet using a OARnet, an Ohio based ISP. Pontifical College Josephinum is a private, Roman Catholic seminary which offers six bachelor programs and three masters degree programs with an enrollment of approximately 130 students. The college needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.